Econometric Analysis of Dynamic Economic Relationships: Inferences and Control

The research considers a variety of interrelated topics of current interest in the econometric analysis of time series generated by dynamic economic relationships. The first area of research concerns the development and application of semiparametric and nonparametric methods for estimation, inference and prediction in dynamic models. Some of the work in this area will include extending existing models on business cycle duration dependence through the estimation of underlying hazard functions nonparametrically. Applications of nonparametric conditional mean estimation to the prediction of asset returns and macroeconomic aggregates will be made. The second area of research deals with the development of nonlinear filtering procedures for the analysis of economic time series generated by a variety of nonlinear models. Many examples in economics, such as dividend payout behavior by liquidity constrained firms and estimation of information flow in financial markets, do not fit into the easily-handled Gaussian framework. An optimal filter for such models will be developed and compared to commonly used (but suboptimal) filters. Related work in investigating the usefulness of such filters in predicting business cycle turning points will also be performed. The final area of research is concerned with the econometric implications of policy control of dynamic economic systems, the parameters of which are known only with considerable uncertainty. The integration of Bayesian inference and optimal control theory should provide insights into the econometric implications of the tradeoff between optimizing policy and estimation. Initially, this issue will be studied through an analysis of the "Laffer Curve", which makes explicit the tradeoff between revenue maximization in the near term and better information about the relation between tax rates and revenue obtained.